Undergraduate Aerospace Flight Systems Laboratory

The development of an Undergraduate Aerospace Flight Systems Laboratory is proposed. Except for a personal computer for input/output functions, this laboratory will consist of a FRASCA International Undergraduate Flight Simulation System. This laboratory will provide hands-on studies of subjects in aircraft flight mechanics (performance, stability and control), simple stability augmentation systems (e.g., yaw damper), the dynamics of a complex aerospace system, and control systems. Because of the wide range of courses to which this facility is applicable, it will be integrated into the full ME undergraduate curriculum; from the first- or second- year course to the senior capstone design course. One of the most unique and intriguing uses of the facility will be the investigation of the flying qualities of project aircraft designed in the AAE senior design course.It should be noted that this simulator is very different from simulators used for pilot training. It is focused on being able to simulate a wide range of aircraft for the purpose of generating and collecting engineering "flight-test" data. With this capability, it becomes an engineering tool rather than a training facility. To assure that the facility is used so that maximum educational benefits are achieved, a Simulator Advisory Committee has been formed (with its members from the flight simulation profession) to participate in the development of the educational program.